Collaborative Research: The Distributed Biological Observatory (DBO)-A Change Detection Array in the Pacific Arctic Region

Several regionally critical marine sites in the Pacific Arctic sector that have very high biomass and are focused foraging points for apex predators, have been reoccupied during multiple international cruises. The data documenting the importance of these ecosystem "hotspots" provide a growing marine time-series from the northern Bering Sea to Barrow Canyon at the boundary of the Chukchi and Beaufort seas. Results from these studies show spatial changes in carbon production and export to the sediments as indicated by infaunal community composition and biomass, shifts in sediment grain size on a S-to-N latitudinal gradient, and range extensions for lower trophic levels and further northward migration of higher trophic organisms, such as gray whales. There is also direct evidence of negative impacts on ice dependent species, such as walruses and polar bears. To more systematically track the broad biological response to sea ice retreat and associated environmental change, an international consortium of scientists are developing a coordinated Distributed Biological Observatory (DBO) that includes selected biological measurements at multiple trophic levels. These measurements are being made simulataneously with hydrographic surveys and satellite observations. The DBO currently focuses on five regional biological "hotspot" locations along a latitudinal gradient. The spatially explicit DBO network is being organized through the Pacific Arctic Group (PAG), a consensus-driven, international collaboration sanctioned by the International Arctic Science Committee. This project will be a U.S. contribution to the DBO effort in the Pacific Sector, and the scientific needs to be met are consistent with research needs identified in the US National Ocean Policy planning effort, and the NOAA strategic plan. The implemented project will serve as a contribution to the US-led Arctic Observing Network and will improve international cooperative efforts for evaluating ecosystem impacts from high latitude climate change. Identifying and collecting key prey-predator biological data in the context of high priority physical and chemical measurements will allow for integration of these data into scientific community analyses and ecosystem modeling efforts. Outreach to local communities and media will ensure that both those immediately impacted and the broader public will be made aware of changes in this sensitive part of the Arctic.